Exploring the Use of Non-Science Themed Art in Science Education: A Conference

STEAM, the use of art as a context and tool for science education, is currently a hot topic in the science education field. In almost all instances of study and practice, it involves the use of science-themed or science-informed art in science education. As such, it does not take advantage of the majority of artistic output that does not have an obvious connection to science. The National Academies of Sciences, Engineering and Medicine recently called for more research to expand the "limited but promising" evidence that integrating arts and humanities with science education leads to better learning. The goal of this 2.5-day conference is to bring together representatives of both art and science groups to have a shared discussion around how non-scientific art can influence science education in theory, and how we can apply empirical results to the theory. For purposes of this conference, "non-science art" is defined as art that was not inspired by science. Conference attendees will include researchers (art and science education researchers) and practitioners (artists, art museum interpreters, and science educators). The conference will take place during the 2020 Black Creativity exhibition at the Museum of Science and Industry, Chicago. It is anticipated that by holding the conference at that time the audience for the conference and its impact will be informed by more diverse attendance.

The conference will be implemented starting with a pre-conference reading. Attendees will be sent a copy of the white paper from the Art as a Way of Knowing report for background reading and also asked to contribute to a Google Document that describes their various contexts. Each day of the conference will focus on a theme -- state of the field and possibilities and research -- and be comprised of large and small group interactions. Attendees will be invited from the ranks of practitioners, researchers and educators in the art and science education fields; several slots will be available for open (non-invited) participants. Key outcomes include: (a) a summary of all the research that has been conducted on using non-science art in science education, (b) starting points for building a theory on why non-science art can be used in science education; and (c) a list of specific research topics that would help inform, advance, and test the theory. In addition to assessing satisfaction with the conference, evaluation will also include a one-year post conference survey to investigate impact of participation in the conference.

This award is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences. This conference will generate products that will give guidance to both researchers and practitioners who want to use art in science education. These products include a white paper synthesizing the discussion and appendices that include raw transcripts and a bibliography of resources. Another product is a roadmap to create interventions that can be studied, which should lead to a stronger, more rigorous theory of practice about how art can be integrated into science education.